CAREER: Kinetic Studies of T-Cell Activation

Abstract 9722376 Beeson This is a career award to determine the association between the kinetics of early T cell activation and the biochemical and functional response of T cells. During an immune response antigenic peptides bound to proteins of the major histocompatibility complex(MHC), bind to T cell receptors. The studies outlined in this award will correlate the structural features of the reactions between peptide-MHC complexes and specific T cell receptors with the biochemical reactions involved in an immune response. Computer models of peptide-MHC complexes will be used to design altered peptides predicted to slightly enhance or disrupt T-cell receptor binding. This will be accomplished by substitutions of amino acid residues with side chains that interact with a TCR. Such altered peptides are known to block or modify normal immune responses. The kinetics of the reactions between these altered peptide-MHC ligands and T cell receptors will be studied. Changes in intracellular calcium, redox potential and cytokine release will be used to relate the molecular events at the cell-cell interface with the biochemical pathways responsible for the immune response. For the teaching component the investigator will incorporate biological topics into the curriculum of an organic chemistry course. Moreover his graduate and undergraduate students will be doing research that involves chemistry, biochemistry and immunology. %%% The studies outlined here will further our understanding of the immune response, by examining in detail the molecular reactions between the antigen and the T cell receptor and the biochemical reactions which follow. ***